Fluorescence Spectroscopy in the Biochemistry Laboratory

A major goal of the Alma College Biochemistry Department is to provide well equipped facilities to teach undergraduate students modem techniques in biochemistry and molecular genetics. The goal of this project is to introduce fluorescence spectroscopy into the undergraduate biochemistry laboratory as a powerful analytical tool. The requested instrumentation provides rapid and sensitive detection of molecular events allowing investigation into areas of biochemistry that complement current methodology and instrumentation available in the laboratory as well as reinforce the lecture portions of the courses offered in the department. The introductory biochemistry, advanced biochemistry, and molecular genetics courses offered by the biochemistry department will use the fluorescence spectrophotometer and supporting equipment. We will study protein-ligand interactions, enzyme kinetics, and protein denaturation kinetics; to investigate properties of liposomes, living cells, and biological membranes; to quantitate small amounts of nucleic acids; and to probe protein-nucleic acid interactions. In addition to its role in the classroom experience, the fluorescence spectrophotometer will also enhance student research opportunities that Alma College provides its students. The instrumentation will significantly enhance the biochemistry laboratory experience and will provide students with a powerful technique that is underutilized in the undergraduate biochemistry laboratory presently.